Mathematical Sciences: Estimation in Multivariate Analysis and Related Topics

The research is in the area of multivariate estimation. The first project is estimation of multivariate normal covariance matrix. A strategy for correcting the eigenvalue distortion will be followed. Solutions of some optimization problems will circumvent the inadequacies of invariant Bayes estimators and the Stein estimator. Other topics include the estimation of discriminant coefficients and the development of principal components within the context of discriminant analysis. Discrete analogues of the methods in the first project will be used to estimate several Poisson means. The principal investigator has a record of some of the best existing work in this area. He will continue to pursue his ideas.